GROUND DEFORMATION DUE TO FAULT RUPTURE AND LIQUEFACTION DURING THE 1999 KOCAELI AND DUZCE, TURKEY, EARTHQUAKES:

CMS0085306
PI: Jean-Pierre Bardet
Institution: University of Southern California
Title: "GROUND DEFORMATION DUE TO SURFACE FAULTING AND LIQUEFACTION DURING THE 1999 KOCAELI AND DUZCE, TURKEY, EARTHQUAKES"

Abstract

During the 1999 Kocaeli and Duzce, Turkey, earthquakes, surface faulting
caused substantial damage to structures and lifelines. It is the first time
that surface faulting impacts urban and industrial areas to such an extent,
and raises major concerns about our current practices in earthquake
engineering. During the 1999 Kocaeli, Turkey, earthquake, there was also
major damage due to liquefaction-induced lateral spreads and coastal
subsidences along the coasts of the Bay of Izmit and Lake Sapanca. The
objective of this proposed exploratory research is to measure ground
deformations caused by surface faulting and liquefaction during the 1999
Kocaeli and Duzce, Turkey earthquakes. This information, which will be
disseminated to researchers and practitioners via the Internet, will
contribute to improving models for liquefaction-induced lateral spreads and
mitigation criteria for surface faulting effects.

The proposed exploratory research completes the work performed immediately
after the earthquakes by the earthquake reconnaissance teams and
subsequently by our research collaborators in Turkey. The discontinuous
dislocations from surface faulting have already been mapped by geologists.
However, the continuous fields of ground strain surrounding surface
faulting have not yet been measured. The aerial photographs taken prior and
after the earthquakes are yet to be interpreted to yield a large-scale
understanding of ground deformation and failure mechanisms, especially in
stepovers between two strike-slip strands (e.g., Golcuk). The same image
processing techniques need also to be also applied for producing maps of
liquefaction-induced ground deformations (e.g., Sapanca Lake). The
processing and interpretation of aerial photographs will be instrumental in
understanding the large-scale ground deformation and failure mechanisms
observed during the 1999 Kocaeli and Duzce, Turkey, earthquakes.

The objectives of the proposed exploratory research are: (1) Compilation
and organization of existing data on surface-faulting and
liquefaction-induced ground deformation for the 1999 Kocaeli and Duzce,
Turkey, earthquakes; (2) Processing of aerial photographs taken prior to
and after the earthquakes for producing maps of permanent displacement
vectors and settlements induced by surface faulting and liquefaction; (3)
Collection of additional ground surveys, and data on geology and
geotechnical soil profiles (e.g., SPT and CPT soundings) in selected areas;
and (4) Dissemination of information collected thorough a new GIS platform
(Internet Map Server) on the Internet.